REU in the SCIPP Microelectronics Laboratory

This REU Site will recruit students nationally to join an REU Site focused on the research in high energy physics at the UCSC Particle Detector Research Center. Students will be assigned to the various projects of the Center, so they can gain substantial familiarity with the equipment used in such research.